Dynamics of Filaments: Modeling, Analysis and Application

The investigator studies the dynamics associated with change
of configurations in filaments. The theory of elastic filaments
is used as a paradigm to describe the different types of
instabilities, the self-organization of filamentary structures
and the propagation of waves. The investigator considers
generalization of the Kirchhoff model to include the effect of
growth (as found in many biological process), general
cross-sections (with application to the dynamics of ribbons) and
viscous effects and perform a dynamical systems and bifurcation
analysis of the equilibrium configurations. This analysis is
completed by the derivation and analysis of amplitude equations
for the behavior of the solution close to the instability. This
project relies on the effective combination of different methods
such as perturbation theory, dynamical system analysis, amplitude
equations for partial differential equations, and numerical
analysis.
Filamentary structures can be observed in nature at all
scales from the microscopic chains of molecules, DNA and
polymers, to the macroscopic braided magnetic flux tubes in solar
flares. One of the central problems in filaments is to
understand the possible changes of configurations and the
dynamics involved in the changes. Remarkably, despite their
different length scales and microscopic structures, unstable
filaments seem to follow universal configurational changes such
as writhing, coiling, super-coiling, and looping. The purpose of
this project is to study the dynamics associated with the change
of configurations in filaments. This will provide a better
understanding of universal changes and self-organization of
filaments, with applications to DNA configurations, structure of
polymers, evolution of biological fibers, and cable kinking.